Mathematical Analysis of Systems with Multiple Components and Multiple Time Scales

The investigator studies systems with multiple interacting
components that together create rhythms. The systems come from
neural, chemical, and gene regulatory contexts. There are two
main themes. The first is reduction of dimensions, investigating
the circumstances under which large-dimensional models behave
like much lower-dimensional differential equations or maps. Some
of that work uses geometric singular perturbation theory to
investigate how systems with multiple degrees of freedom
"condense" to essentially lower-dimensional systems, at least
locally in phase space. Another set of issues related to
reduction of dimension concerns fast partial synchronization.
The second theme concerns how interaction of many components in a
system can lead to the suppression of activity in some of the
components. Two examples of this to be studied come from a
chemical pattern formation and neural systems, each with some
type of global inhibitory feedback.
Systems with many separate but interacting components arise
in a large variety of applications, including biotechnology,
chemical engineering, and neurobiology. In general, such systems
have a large number of degrees of freedom, and are usually
investigated by numerical simulation. However, simulations alone
do not provide a deep understanding of why the systems behave the
way they do, or how they can be manipulated. Reductions of
equations to smaller systems can be very useful. But without a
principled way to do the reductions, one does not know how much
of the behavior of the large system is lost. This project
concerns methods to find such principled reductions, using
mathematical tools that enable one to investigate circumstances
under which parts of the dynamics behave like that of systems
with a much smaller number of degrees of freedom. Other tools to
be used allow one to understand how only some subset of the
components can be involved at a given time, even though all
components are coupled. The methods are applied to problems from
neural, chemical and gene regulation systems. The project also
provides interdisciplinary training opportunities for students
and postdocs.